Quantum Phase Transitions and Vortex Dynamics

9528535 Scalettar This grant contains a two pronged (analytical and numerical) study of interplay between disorder and strong correlations in quantum and classical phase transitions. The research covers a broad range of topics, including boson and fermion Hubbard models, the dynamics of vortices in high temperature superconductors, quantum spin glasses, possible "supersolid" phases in Fermi and Bose systems and whether a Bose system can remain normal at zero temperature due to quantum fluctuations.. In the course of this work, there is also a plan to develop new computational tools, e.g. . applications of the maximum entropy method to the dynamical response of random systems. %%% The project is a combined effort by two researchers with complementary talents, one has a strong background in the mathematical analysis and the other is well known for his work using high performance computers. They have chosen to apply their combined talents to a wide range of problems in Materials Theory: phase transition between a superconductor and an insulator, Current-voltage characteristics of superconductors and properties of Bose condensation as influenced by a variety of perturbations. Our understanding of superfluids and superconductivity in copper oxides will be main beneficiaries of this research. ***